Diversity in Biological Research Workshop to be Held on July 11-12th, 1991.

A major goal of the National Science Foundation is to serve as a catalyst in helping to increase the number of minority Ph.D.s in the sciences. In order to accomplish this goal, NSF must first become better informed of the barriers that beset minority scientists already in the pipeline. Attendance at the workshop will be open to everyone. The purpose of this workshop is to provide a framework that can serve as an operating model at the program level. The eleven participants are already role models at their respective institutions and will share their experiences with the scientific community. They are also principal investigators of NSF research awards. The charge to them is to suggest a feasible plan that will be available to everyone.//